SGER - Ash Flow Tuffs: a New Material for Reliable Paleointensities

The PIs suggest that carefully selected samples from many ash flow tuffs (ignimbrites) should
yield reliable estimates of the ancient field intensity. Preliminary data from the Bishop Tuff have yielded high quality
paleointensity results with a high success ratio (75%). In addition, the well documented presence
of fine-grained cubic Fe-oxides spanning the superparamagnetic (SP) to single domain (SD) size
range in silicic glasses from tuffs should be well suited for paleointensity determinations. These
fine grained magnetic minerals in a glassy matrix may also be effectively armored during the
multiple laboratory heatings necessary for a paleofield determination. Finally, ash flow tuffs are
typically well suited for high precision 40Ar/39Ar dating that can provide an accurate age
framework for any paleointensity results.
This project is a pilot study of the Pleistocene Bishop Tuff aimed at evaluating the suitability of ash
flow tuffs for absolute paleointensity studies. Because only portions of a particular ignimbrite will
ultimately prove suitable for paleointensity work, a goal of the study will be to develop a strategy
to identify the most likely materials for reliable paleointensities.
The variability in magnetic mineralogy and cooling history in ash flows will also allow the testing of
several additional aspects of paleointensity determinations, including the effects of cooling rate,
magnetic mineralogy and the influence of chemical remanence on paleointensity results. These
are important controls on paleointensity in all recording media and so these tests will yield
valuable information for interpreting other paleointensity results.
The main goal of this proposal is to evaluate whether reliable paleointensities
can be determined from ignimbrites. If absolute paleointensities can be determined from ash flows, it may
be possible to compile a much more comprehensive database of past field intensity fluctuations
of the geomagnetic field. All data generated during the present project will be archived in the
paleomagnetic data base (http://www.earthref.org/MAGIC/index.html) and the results will be
presented at international conferences and in published papers.